Annual Symposium on Frontiers of Science

OPS-9526496 NAS Metzger, Norman The National Academy of Sciences is requesting funding for the 1995 Annual Symposium on Frontiers of Science, to be held November 2-4 in Irvine, California. The amount requested from the National Science Foundation is $53,000 for the period April 1, 1995 through March 31, 1996.